Undergraduate Research in Solid State Physics

The primary goal of this project is to broaden opportunities for student research in the following related fields of solid state physics: the optical properties of metals, electronic transport through tunnel barriers and the characterization of interface morphology. In particular, the phenomenon of light emission from tunnel junctions is a suitable topic for undergraduate projects. The acquisition of a monochromator, a rotating sample holder and a calibrated light source allow the spectra of the emitted light to be measured. In addition, students may compare their measured spectra with those calculated using models for the electron tunnelling current and the microscopic features of the interfaces.